CAREER: Toward Physical Security for Privacy-preserving Neural Networks at the Edge

Neural networks learn patterns from labeled data to output accurate predictions on new inputs. They are increasingly embedded in critical real-world systems, from healthcare wearables and smart homes to autonomous vehicles. These systems often rely on privacy-preserving implementations that keep user inputs and model details hidden from other parties. However, both the model provider and the user face privacy and security risks. A malicious model provider can insert backdoors during training, while a malicious user can attempt intellectual property theft by reverse-engineering model parameters and architecture. Physical attacks intensify these risks by exploiting device-level observables (e.g., power usage) and faults to bypass conventional security boundaries. The rapid adoption of privacy-preserving neural networks leaves limited time to identify and fix such critical threats. The project's novelties are physical-security-first approaches to privacy-preserving neural network deployments that combat backdoors, leakage of security-critical information, and fault injection within a single system. The project's broader significance and importance are enhancing national security and improving trust in sensitive applications through measurable advances that reduce the risk of model manipulation and theft, as well as violation of users' data privacy. This project offers community dissemination through a public issue database and vulnerability-discovery competitions that train next-generation engineers to build and evaluate secure, privacy-preserving neural network systems.

The project develops a vulnerability assessment methodology that characterizes (1) backdoor insertion during training, (2) susceptibility to non-invasive and semi-invasive information leakage during inference, and (3) fault injection combined with machine learning to infer secret parameters and architecture. The technical approach derives threat-specific tests and metrics, then designs low-overhead countermeasures that are native to privacy-preserving implementation and require minimal hardware change. Cross-cutting defenses include hardware-aware randomness generation with provable, composable leakage resistance across modules, and fault-resilient computation structures that limit fault propagation while preserving correctness. The research establishes theoretical and empirical bounds on fault tolerance and validates findings through real implementations on field-programmable gate arrays. This project produces practical guidelines, open toolkits, and datasets.